SBIR Phase I: ChromArray, Chrosome Analysis Wafer

This Small Business Innovation Research (SBIR) Phase I project proposes a new technique for rapid Karyotyping based on a "ChromArray" device, which would allow the collection of a large number of chromosome spreads in a precise array. By collecting the inherent spectrum of chromosomes, the addition of dye is not necessary. Each physical coordinate within the karyotype would contain a third axis (spectra), adding further criteria for automated karyotpying of large number of chromosome spreads simultaneously. This project will investigate a technique of karyotyping that permits rapid identification of chromosomal alterations, thereby identifying chromosomal abnormalities of a large array of chromosome samples simultaneously. Therefore a large number of cells from the human body (of which there are 200 cell types) can be studied, to screen for genetic disorders.

The commercial application of this project is in the area of human healthcare. The use of chromarray technology and near field optical microscopy would impact a variety of clinical disease assays when completely implemented.